Conceptual Structure and Argument Structure in a Natural Language Lexicon

The study concerns the representation of syntactic and semantic/conceptual knowledge of natural language with a particular focus on the structure of information which must be represented in the lexicon. The principal investigator will adopt a modular theory of language in which linguistic information (e.g. syntax) and nonlinguistic information (e.g. concepts) are encoded in distinct fashions, each with their own characteristic primitives and principles of combination. Previous work by the principal investigator supports the general idea that linguistic information itself must be factored into autonomous representations, each regulated by its own principles.